Emerging Engineer Travel Support, The Sixth International Symposium on Radiative Transport: June 13-18, 2010 in Antalya, Turkey

1037942
Webb

Radiative transport is a dominant mechanism in applications including but not limited to: energy generation and conversion involving fossil fuel, solar and nuclear technologies; thermal manufacturing including manufacturing at the nanoscale; fire and combustion, and development of non-contact metrology, diagnostic and sensing technologies. It is atmospheric radiative transfer and its sensitivity to the atmosphere's evolving chemical content that governs Earth's temperature and drives potential climate change.

Intellectual Merit: This award provides support for travel by eight U.S. researchers to the Sixth International Symposium on Radiative Transport, which will be held in Antalya, Turkey, on June 13 - 18, 2010. This meeting has been held periodically since 1995, and is a premier event attracting scientists and engineers in the field of radiative heat transfer. Priority will be given to U.S. Ph.D. students and post-doctoral associates working in radiative transfer. Support for pre-tenure faculty members at U.S. academic institutions will also be considered for support.

Broader Impacts: The symposium will be attended by a diverse cadre of researchers including physicists, chemists, materials scientists, atmospheric scientists, power production engineers, manufacturing engineers, and others who are concerned with a wide spectrum of fundamental challenges and opportunities in radiative transport. Continuing a tradition from previous symposia, it is expected that the most important 30 to 35 papers will be published in a special issue of the Journal of Quantitative Spectroscopy and Radiative Transfer, which is a premier journal in the subject matter of the symposium, and of which the PI and co-PI are associate-technical and technical editors, respectively. Efforts will be made to include participation of students and young faculty members from underrepresented groups.